The Pressure Profile in Cone-and-Plate Flows of Liquid Crystal Polymers

A cone and plate rheometer will be utilized in an experimental determination of shear viscosity, and the two normal stress differences, for various liquid crystal polymers (LPC). Through the capability to measure the internal pressure profile in the rheometer, it will be possible to determine the degree of homogeneity of the oriented liquid crystals throughout the strained liquid volume during the experiments. The measurements will test the ability of currently used methods for determining the rheological characteristics of LPC materials, since these are based on assumed homogeneity. The existence and extent of a homogeneous state during LCP processing is currently controversial, and resolution of this issue is important in establishing reliable means for characterizing such materials.